CSR-SMA: Autocorrelated Flows in Systems: Analytic Models and Applications

Temporal dependence within the workload of any computing or networking system
has been widely recognized as a significant factor affecting performance.
More specifically, burstiness, as a form of temporal dependency,
is catastrophic for performance. Experiments have shown that burstiness
in the arrival intensities or service demands in a single server system
may result in user response times that are slower by several orders
of magnitude. To this day, no analytic queueing models exist that explicitly
capture burstiness.

The proposed research will provide a formalization of burstiness using
autocorrelation which characterizes the temporal dependence structure in
request flows. New analytic models that capture the performance effects of
autocorrelation in queueing systems will be devised, and based on these,
new resource allocation and scheduling policies will be developed.